A CEDAR Observatory at the Poker Flat Research Range

This proposal is for the purchase of equipment to be located at Poker Flat Research Range. The items to be acquired will be used for the improvement of services to visiting scientists and the consolidation of a newly developed imaging Fabry Perot Etalon. A terminal server will be purchased which allows for up to sixteen different experiments to serviced by telephone modem from outside the Research Range. Up to the present, we have used dedicated lines, one per experiment, for this purpose. This addition will enable service to many more remote users of the facility than the current capability with a restricted number of phone lines.